Problems of Complex Analysis Arising in Complex Dynamics

Abstract. Problems of Complex Analysis Arising in Complex Dynamics

The research of this proposal applies the methods of complex analysis to
several problems of dynamical systems in the complex domain. The dynamics
of a polynomial map of the complex plane C has been studied in depth and
has produced a theory which is both a beautiful and compelling model for
many systems in nature. The dynamics of polynomial mappings of
two-dimensional complex space C^2 should produce a theory with equal
beauty and utility. The work of this project includes three parts:

1. The first objective is to study mappings which are quasi-hyperbolic, a
condition which is more general and will be more easily verified than the
more traditional condition of (uniform) hyperbolicity. At the same time,
the quasi-hyperbolic mappings have expansion/contraction properties which
makes them
understandable in a way similar to hyperbolic mappings. The corresponding
dynamical sets will be shown to have bounded geometry.

2. A second objective is to apply these complex methods to the study of
polynomial difffeomorphisms of the real plane. This will give a new
approach that will give results not easily obtained with purely real methods.

3. The third objective is to understand the nature of parameter space, the
space of all mappings. A particular focus will be on the connectedness
locus, which is a higher-dimensional analogue of the Mandelbrot set.

In each of these cases, the methodology involves the further development of
mathematical techniques from complex analysis: analytic functions and
varieties, harmonic measure, pluri-potential theory, and the geometric
theory of currents.